Database Processing on a Cube-Connected Multicomputer System(Computer and Information Science)

This project investigates novel algorithms for database processing in multicomputer systems. Parallel architectures for database processing need to incorporate both parallel processors (CPU's) and parallel I/O (disk access) capability. This research is focused on a boolean n-cube connected architecture, with a disk attached to each node, thereby providing parallel I/O. The need to support parallel I/O gives rise to two important issues: data combination and non-uniform data distribution. Since the cube interconnection subsumes many other structures such as trees, rings, etc., this property is exploited to efficiently support data combination in a variety of database operations such as Selection, Aggregation, Join, and Projection. The research involves both analytic and simulation study of various database operations under a variety of initial and intermediate data distribution conditions, using a 64-node hypercucbe. Modern fabrication techniques make it possible to produce hundreds or even thousands of computing elements (processors) at low cost. The significance of this research is that parallel processing algorithms are critical to harnessing the fabrication potential to produce real benefit for applications such as database processing. Support is provided under the Research Initiation activity for New Investigators.